Effective gauge potentials and geometric magnetism in atomic systems

The Born-Oppenheimer (BO) approximation and its extension, the Born-Huang
expansion, is at the core of molecular physics but only in the past two decades has the
full richness of the underlying theory been explored. From the traditional perspective,
molecular forces are expressed in terms of a mean scalar field generated by the
collective behavior of the fast degrees of freedom (i.e. electrons).
This mean field, the Born-Oppenheimer potential, acts upon the slow degrees of
freedom (vibronic coordinates) and it determines the vibrational structure of molecules
and the collision properties of atoms. The modern expression of the BO theory, and its
multichannel extension, allows for the presence of effective vector, gauge, potentials.
These potentials can generate velocity dependent forces, as if from an effective
magnetic field, acting upon the slow degrees of freedom. M. V. Berry coined the term
geometric magnetism to describe the latter. They can also lead to the appearance of
geometric phases.
In this research, a Rydberg electron in orbit around a complex core is considered for
investigation of the non-Abelian geometric phase in atomic systems. If the core has
non-vanishing angular momentum the Rydberg electron experiences an effective,
non-Abelian, gauge potential. The potential has magnetic monopole-like structure and
there are interesting analogues with phenomena familiar in particle theory. An effective
spin-orbit interaction is derived and is related to the screened charge of the monopole.
The effect of that interaction on the level structure will be calculated and compared with
experimental measurements. Rydberg atoms can also be manipulated to form coherent
wave packets, so called designer atoms, and a study of numerical wavepackets
in the field of the monopole is proposed. This work will advance the fundamental
understanding of Rydberg systems that have possible applications to quantum
information and computing.
In addition to Rydberg systems, similar gauge structures arise when describing the
collision of atoms. In the scattering problem, serious difficulties in application of the
Born-Huang method arise. The mathematical framework of gauge theory promises to
shed new light on some of these long standing difficulties. There is lots of interest,
generated by advances in the laboratory realization of cold molecules, to develop
advanced capabilities for tests of parity violation and the variation of fundamental
constants. Full understanding of molecular dynamics is required in order to account for
all systemic effects, including those of induced vector potentials, that might influence
high precision measurements.